RUI: The Dynamics of Biological Invasions

Schreiber
0077986
The investigator develops mathematical methods for
difference and differential equation models to better predict
under what conditions biological invasions succeed and the
implications of successful invasions on the structure of
ecological communities. An emphasis is placed on methods that are
robust to structural perturbations of the population equations
and that apply to systems with nonlinear dynamics (e.g.,
periodicity, quasiperiodicity, and chaos). The methods involve
the use and development of techniques from smooth ergodic theory.
Application of these methods to models of host-parasitoid
interactions and tritrophic food webs is pursued. Two aspects of
host-parasitoid interactions are examined. First, because
parasitoids experience egg limitation when released in systems
with highly variable host densities (the typical situation when
an exotic insect has reached pest status), a model of
host-parasitoid interactions that incorporates this
egg-limitation is considered. As successful biological control
only occurs after a parasitoid population has established itself,
the proposed analysis of the model intends to determine how
variability in the dynamics of the host population influences the
invasion rate of the parasitoid population. Second, previous work
on the coevolution of patch selection strategies in
host-parasitoid systems is extended to include two important
biological factors, the sex-allocation strategies of parasitoids
and plant dynamics. The key issue is whether the manipulation of
crop heterogeneity can lead to the coevolution of behavioral
traits that simultaneously stabilize the system and increase crop
yields. Third, to better understand how ecological communities
assemble due to invasions, this proposal undertakes the study of
tritrophic systems with more than one species at each trophic
level. In these systems, three ecological forces (apparent
competition, resource competition and intraguild predation) play
an important role and can lead to successional intransitivites
(e.g., a sequence of invasions that takes community A to
community B, B to C and C back to A). Emphasis is placed on the
influence of habitat productivity and the timing of invasions on
the community assembly process. In addition, the project includes
a program designed to stimulate undergraduate research.
Invading non-native species in the United States cause
estimated economic losses of 138 billion dollars annually in
agriculture, forestry and several other segments of the U.S.
economy. Exotic insect species alone are estimated to cause 13
billion dollars in crop losses annually and approximately 42% of
the species on the threatened or endangered species lists are at
risk primarily because of nonnative species. As biological
invasions often involve nonlinear interactions between several
species, mathematical models, as simple caricatures, allow one to
inexpensively answer questions such as: What characteristics make
a species a successful invader? Which ecological communities are
most susceptible to large long-term changes following an
invasion? How can crop heterogeneity be manipulated to minimize
the economic impact of non-native pests? The project proposes to
develop analytical methods, and to apply these methods to models
that address these and other questions of current interest to
community ecology, restoration ecology, biological control, and
evolutionary biology.